U.S.-Brazil Cooperative Environmental Research Using Phytoremediation and New Flotation Techniques

9600181 Smith This U.S.-Brazil collaborative research project is led by Ross Smith and Manoranjan Mitra of the University of Nevada Reno in conjunction with Jorge Rubio Rojas of the Federal University of Rio Grande do Sul in Brazil. The two groups will unite their expertise to focus on the problems of contamination of waters and soils by heavy metals, including radio nuclides, oils, and other waste, making use of the experience in phytoremediation for heavy metals of the U.S. group and the use by the Brazilian group of hydrophobic aquatic plants for removal of oils. Mechanisms contributing to metal ion or oil uptake will be studied in detail. New floatation techniques centering around variants of tall column devices will also be expanded. The work takes advantage of overlapping areas of expertise in the two countries and will contribute significantly to the development of graduate students who will participate. The support for the Brazilian team is provided by CNPq as part of a bilateral U.S.-Brazil agreement. ***